CAREER: Novel Theoretical Tools for Dynamics of Interacting Light-Matter Systems

Hsing-Ta Chen of the University of Notre Dame is supported to pioneer new approaches to harness the interaction between light and molecules to power the next generation of energy and quantum technologies. Light and molecules are constantly exchanging energy at the quantum scale across complex environments, such as inside tiny mirrors or near metal surfaces. Dr. Chen and his research group will develop methods that allow scientists to understand and predict how molecules behave in these complex environments. This work will provide the essential toolset to control chemical reactions with deliberate selectivity and move electrical charges with unprecedented efficiency, potentially leading to faster electronics and more efficient solar cells. Furthermore, by studying how energy stays concentrated versus how it spreads out, Dr. Chen will gain insight into keeping quantum information stable and secure over long distances. Dr. Chen is advancing science education by creating AI-powered learning tools and open-source software that bring cutting-edge research directly into the classroom. These efforts will ensure that these scientific breakthroughs directly cultivate a multifaceted and robust STEM workforce to meet future challenges in quantum technology.

The proposed research aims to overcome a fundamental challenge of understanding and controlling how radiative intermolecular coupling governs molecular dynamics within complex electromagnetic environments. To address this, a unified theoretical framework will be developed that bridges distinct electrodynamic regimes, specifically integrating semiclassical electrodynamics (SCED), cavity quantum electrodynamics (CQED), and macroscopic quantum electrodynamics (MQED). By synthesizing these frameworks, a robust computational toolset will be created capable of characterizing light-matter interactions at the quantum scale, ultimately enabling the selective manipulation of molecular reactivity and the optimization of charge carrier transport in next-generation materials. To ensure substantial broader impact, these tools will be disseminated via open-source software and integrated into established simulation platforms, providing the wider scientific community with the means to model complex nanophotonic systems. This effort will offer critical insights into maintaining long-range quantum coherence, establishing the groundwork necessary for the advancement of quantum information science using nanophotonics. In alignment with the research goals, the education initiative focuses on creating a specialized electromagnetism module for physical chemists, incorporating AI into STEM pedagogy, and increasing scientific outreach through public communication. These activities are specifically intended to address curricular gaps in physical chemistry, sharpen the analytical capabilities of students, and elevate the public profile of both educational and scientific advancements.